The 25th Informal Conference on Photochemistry; Miami, Florida, June 2-7, 2002

The 25th Informal Conference on Photochemistry will be held at the University of Miami, Miami, FL, from June 2-7, 2002. The conference will address the following topics: atmospheric photochemistry, free radical kinetics, free radical spectroscopy, heterogeneous chemistry and photochemistry on surfaces, photophysics and energy transfer, reaction dynamics, and photodissociation dynamics. This conference serves to foster interactions between the atmospheric chemistry and physical chemistry laboratory communities. NSF support will be used to subsidize the travel and registration costs for graduate and postdoctoral scientists.